SGER: The Feasibility of Detecting Electrical Conductivity of Tissues Using Ultrasound in a Mangetic Field

9814411
Hynynen
The goal of this proposed research is to test the hypothesis that voltage induced by applying ultrasound in the presence of high magnetic fields can be used to map the electric properties of tissues. This may provide a means to generate real time images of the electrical parameters, with spatial resolutions similar to diagnostic ultrasound. Applying this method may be particularly valuable in breast cancer imaging since breast tumors give rise to large variations in tissue electrical parameters.
***